Coding for Multimedia Sources and Sensor Data: New Theory, Algorithms, and Applications

ABSTRACT

Source coding plays a critical role in many modern digital systems.
Indeed, as a research area, source coding is more important and
fertile than ever, with a wealth of new opportunities and challenges
arising from the increasing pervasiveness of multimedia and sensor
data in a digital world. This research pursues a set of particularly
interesting, novel, and timely directions in this realm, and aims to
impact the design of practical systems. There are three complementary
aspects to the research: theory, algorithms, and applications.

In the theory area, the emphasis is on problems of distributed source
coding. There has been strong growth in interest in such problems,
motivated by, for example, the need for resource efficient
quantization and compression techniques in networks. The
investigation pursues a substantial but largely unexplored aspect of
distributed source coding theory: how distortion side information
--- i.e., information about the relative importance of the signal
components to be coded --- can be exploited in such problems.

In the algorithms area, the focusses on turbo-quantization ---
low-complexity iterative source encoding techniques and their
implementation. Over the past decade, there has been a tremendous
success in developing low-complexity iterative channel decoding
algorithms for use with error-correction codes. The corresponding
source codes obtained via duality principles have the potential to
similarly transform the practice of source coding.

Finally, the research investigates important emerging
decision-system applications in which source coding and
distortion criteria play an integral role, but in nontraditional ways.
Specific examples being pursued include hashing systems for
multimedia databases and systems for authenticating multimedia
content.